CAREER: Crack Initiation and Crack Propagation in Hybrid Fiber Reinforced Composites

9624980 Ostertag This CAREER award project will combine education and research in a new class of hybrid fiber reinforced composite cementitious (HFRCC) materials in which both large and small fibers are used to achieve high strength with better toughness. The primary research objective involves the study of crack initiation and propagation in the HFRCC materials. A secondary objective is to optimize the properties at low reinforcement values. The educational project involves modernizing the civil engineering materials courses and related activities. ***